Digital Government: I2T: An Information Integration Testbed for Digital Government

EIA-9983510
Baru, Chaitanya K
University of California

Digital Government: 12T An Information Testbed for Digital Government

This project will address one of the major problems in government information systems, the inability to integrated information from various heterogeneous data sources. Usually these data are collected and managed by different agencies at different levels of government, providing more impediments to integration. Partners from the Bureau of the Census, National Archives and Records Administration, US Geological Survey, the State of Pennsylvania, and the San Diego Association of Governments will work with researchers from the San Diego Supercomputer Center, the University of California at San Diego, the University of Michigan, and the University of Pennsylvania.

Building upon the initial work of the Mediation of Information using XML (MIX) project, this grant has four major technical thrusts:

1. allow for an extension of MIX's wrapper technology to the domain of geospatial information,
2. develop data transfer protocols for lightweight network-based agents,
3. investigate new interfaces to the data, and
4. build wrapper toolkits for geospatial and statistical survey metadata.